Research on Theoretical Cosmology

Research on theoretical cosmology

P. J. E. Peebles

Dr. Peebles is analyzing the empirical evidence on how the growth of structure in the Universe occurred and comparing it to the predictions of general relativity theory applied to the evolution of an expanding universe. The cosmological inflation concept offers a picture for the behavior of the very early universe and how it might have set the initial conditions for structure formation. Dr. Peebles is analyzing the possibilities offered by inflation and its confrontation with the observational evidence There are several pieces to this project. Dr. Peebles is completing the study of the application of the numerical action method to simulated catalogs and the new Tully redshift distance catalog. In addition, he is studying the nonlinear aspherical evolution of the Local Group of galaxies using this numerical action method.